EDGE: Creation of a Genetically Tractable Cephalopod Model using the Hawaiian Bobtail Squid

Cephalopods are the most behaviorally complex invertebrates, exhibiting sophistication on par with higher vertebrates. They have a highly complex system for camouflage, enabling them to blend in with their environment instantaneously. They have an advanced ability for learning and memory. They have large brains (the common octopus has 6 times as many nerve cells as a rat). These and other innovations have evolved along an independent trajectory from the vertebrates, the only other similarly advanced group. By studying cephalopods, much can be learned regarding biological complexity; however, these studies have lagged due to the lack of a suitable cephalopod model system. Over the past 30 years, genetically tractable model organisms like the fruit fly and lab mouse have driven biological discovery. This project aims to develop the Hawaiian Bobtail Squid into the first genetically tractable cephalopod model. This species is ideal because it is small, it can be cultured through its entire lifecycle, and it reaches sexual maturity in as little as two and a half months. The project involves the establishment of a large-scale culture facility at the Marine Biological Laboratory to provide specimens for genetic manipulation. Husbandry methods are perfected to culture these organisms through multiple generations. Finally, techniques for genome editing are developed. All resources developed under this project, including animals and methods for gene knockouts, are shared with the scientific community of cephalopod enthusiasts through workshops. Additional efforts include assistance with the incorporation of cephalopod biology into educational curricula for undergraduate students, and into public outreach activities, such as exhibits at science museums.

As a group, the coleoid cephalopods exhibit extraordinary novelties, many that are poised to promote biological discovery across disciplines. For example, they have by far the largest brains of any invertebrate, and show behavioral sophistication comparable to advanced vertebrates. Through convergence, they have evolved camera-type eyes and the biomechanical capabilities of their appendages inspire robotic design. Conspicuous symbioses with marine microbes make some species ideal models for studying symbioses. Recently sequenced genomes and transcriptomes have uncovered molecular novelties. In octopus, for example, large-scale expansions of cell adhesion molecules may help explain how complex nervous systems are assembled. Other studies indicate that cephalopods use RNA editing at unprecedented levels to diversify genetic information. Taken together, these phenomena underscore the vast potential of cephalopods to broaden our understanding of fundamental and unexplored area in biology; however, the field has struggled to advance without a genetically tractable model. The cephalopod community has lacked a model because the husbandry of these organisms is difficult. This work overcomes a key bottleneck in cephalopod research by developing Euprymna scolopes, the Hawaiian Bobtail Squid, into a genetically tractable model. This species is ideal because it is small, it can be cultured through its lifecycle, and it reaches sexual maturity rapidly. To accomplish the project goals, a lifecycle culture facility is established and protocols for genome editing using CRISPR-Cas9 are developed. Animals produced by this facility are offered to the scientific community. Protocols for husbandry and genome editing are disseminated through workshops.